13th Workshop on the Physics of Dusty Plasmas Workshop to be held at Baylor University in Waco, Texas

This award supports graduate student travel to the 13th Workshop on the Physics of Dusty Plasmas to be held at Baylor University, Waco, Texas, in May 2012. The objectives of this workshop are to review recent developments, to define outstanding issues and challenges, and to foster collaborations among the relevant disciplines. The interaction between dust and plasmas in laboratory, industrial, atmospheric, solar system, and astrophysical settings have yielded a new and rich phenomenology with potential applications.